Petrologic Transects Through the Western Alps

Petrologic Transects Through the Western Alps: This award recommendation is made under the U.S.-Industrialized Countries Program for the Exchange of Scientists and Engineers, 1987/1988 Competition. The program is designed to enable U.S. scientists and engineers to conduct long-term research at research institutions in the industrialized countries of Western Europe as well as Japan, Australia and New Zealand. Exchange awards provide opportunities for the conduct of joint research and the utilization of unique or complementary facilities, expertise and experimental conditions in foreign countries. Awards are selected on the basis of scientific criteria relevant to his/her field of science, the propsective potential of the applicants for professional growth, as well as criteria relevant to the furthering of international cooperation in science and engineering. The program is particularly directed to scientists and engineers who are embarking on their research careers. This research project will address problems of high-pressure metamorphism occurring in the Western Alps, where crustal rocks have been subjected to a wide range of pressures. It is proposed to take advantage of that range of pressures by undertaking sampling traverses across the structural grain of the Western Alps from the Brionconais zone to the Dora Maira massif on the French-Italian border. The project is under the direction of Dr. Brian E. Patrick, Department of Geological Sciences, University of Washington, Seattle, WA 98115, U.S.A., and Professor Christian Chopin, Ecole Normale Superieure, Laboratoire de Geologie, 46, rue d'Ulm, 75230, Paris, France. This award recommendation provides funds to cover, as appropriate, international travel, local travel abroad, stipend, dependents allowance, if applicable, language training, if required, and a flat administrative allowance of $250 for the U.S. home institution.